Morphological Instability During CdTe Homoepitaxy

Professors Paul Sides and David Sholl will investigate the origin of the morphological instability occurring during homoepitaxial chemical vapor deposition of CdTe thin films from organometallic precursors. They will use Monte Carlo Simulations and continuum growth models as well as experiments of CdTe deposition on (100), (110), (111)CD and (111)Te. Morphology will be determined with nomarsky and scanning tunneling microscopy in a time-resolved manner, and the observations will be compared with the simulations. A new monoloayer-sentitive technique will be developed based on scattered total internal reflection infrared spectroscopy. Radiaiton below 900 nm will be directed through the crystal towards the CdTe-vapor interface with the purpose of detecting the appearance of steps. The hypothesis that Schwoebel barriers are responsible for the morphological instability of CdTe deposited by OMVPE will be tested.